The Ohio State University Summer Physics Institute/REU

*** Palmer This grant will provide initial support for the Ohio State University Summer Physics Institute which is designed to encourage students to pursue research careers in physics by introducing them to and engaging in the research activities of a major research university physics department. The Institute will support ten-week research internships, including a stipend, subsistence, and travel. Students will live and work together, guided by their faculty mentors, in research groups that include graduate students and post- doctoral students. They will engage in tutorials on computational physics, instrumentation and electronics, and shop safety and procedures, but the main focus will be the project that the faculty mentor and the students jointly develop. Group activities are designed to promote interactions and relationships among the intern students and the Department's student and faculty researchers. Each intern will write a project prospectus early in the summer and a final oral and written report at the end of the summer. The program is intended for students who are physics majors in undergraduate programs and who are between their sophomore and junior year or their junior and senior year, but all undergraduates are encouraged to apply. The focus will be regional, but the Institute will be advertised nationally. A particular attempt will be made to involve women and minorities. The many small undergraduate institutions in the region will be strongly encouraged to send applicants. The recruitment and selection committee includes a representative of a local small college, as well as faculty members nationally prominent in areas of outreach to minorities and women. ***